Optimization Studies for Applications of a Scanned Light Display

The Virtual Retinal Display (VRD) is a new form of display device developed at the Human Interface Technology Laboratory in Seattle, Washington. This device scans light directly into the eye to create images at the retina. It is anticipated that the VRD will become a ubiquitous display device as it will be miniaturized to wear on a spectacles frame. The VRD is bright, yet safe and uses lasers as highly color saturated sources of light. The research from this proposal will be studies on the fundamentals of light perception of scanned images. These studies will allow us to optimize the scan characteristics for best color, resolution and contrast. We intend to understand the features of temporal and spatial integration by the retinal processing elements of the scanned light and how that integration affects the image perception. We will then be able to produce images with excellent color matching and image sharpness. By optimizing the VRD in this research we will allow its use where image quality is essential, such as in remote surgery, or surgical training. Further, bright, high quality images with the VRD will make it excellent for use in augmented vision applications, where images are superimposed on the real world.